Collaborative Research: Building and Testing a Framework for Promoting Conceptual Mathematics Learning with Students

Building and Testing a Framework for Promoting Conceptual Mathematics Learning with Students

A key avenue to increase participation in STEM is through mathematics teacher coaching that cultivates the brilliances of youth. Mathematics coaching typically involves professional development through ongoing support, mentoring, and providing feedback and instructional assessments to practicing and prospective teachers. Therefore, there is important to build and test theories to enhance mathematics instructional coaching to support millions of students across the US towards their STEM aspirations, while strengthening schools, mathematics education, and society. Specifically, this project will develop and test a coaching framework that advances conceptual mathematics learning for all students.

Using qualitative participatory methodology, students’ voices, knowledge, and experiences will be central in informing the development of this coaching framework. Given that students are often excluded from conversations about high-quality mathematics instruction, this project takes an innovative approach in establishing and sustaining interactions with a cohort of high school students. This project will use the coaching framework to build and test a model for high school mathematics teachers that (1) supports students’ learning, (2) advances conceptually oriented mathematics instructional practices, and (3) impacts students’ experiences and learning opportunities. As such, students will have opportunities to convene to share their experiences. Mathematics teachers will have opportunities to participate in professional development, including piloting and developing the coaching model. This project will contribute to both theory and practice in mathematics education as well as producing an immediate positive impact to the lives of students.